Exceptional Theta Series and Higher Spins in Constant Curvature Backgrounds

0140365
Waldron

Einstein both proposed and retracted an addition of a cosmological constant Lambda
term to his equations describing gravity as curvature of space and time. Recent
observations indicate the presence of a small, positive Lambda.
As shown by the PI and collaborators, the notions of spin and mass
are mathematically richer if this the case. The project will in part be devoted to a
study of these new phenomena. In addition, the theoretical understanding of
what a quantum theory of gravitation might look like, has significantly advanced
in a large part through studies of string theories which replace particle excitations
with those of fundamental strings. Strikingly, many new results in mathematics
have arisen from these considerations. The PI will investigate various
aspects of this math/physics interplay, including a generalization of strings to membranes,
random matrices and supersymmetry.